Mathematical Sciences: Undergraduate Research in applying Algebra and Scientific Computing

A Research Experiences for Undergraduates project supported by this grant will follow a three-stage approach. The format does not follow the traditional summer schedule. Rather, students will first complete two six-week cycles of study and research during the academic year. They will concentrate on understanding the structure of crystallographic groups. The work will cover the necessary concepts in modern algebra and number theory which form the basis of X-ray crystallography. Matrix groups, subgroup structure , normality and quotient structure will be analyzed first. Particular crystallographic groups will be taken up next and students will learn how to extract relevant properties from these structures. The second cycle involves activities related to the study of crystallographic groups on certain rings. This will involve the development of computational techniques for matrix manipulation. Students will learn the orbital decomposition of rings and the concept of fundamental region. They will, at this stage, be introduced to the Center for Large Scale Computation to observe research activities on the applications of computation in research, design of algorithms and scientific computing. The third stage involves independent work and will take place immediately after the close of spring semester. Students will use computers to determine fundamental regions and the permutation matrices mapping one region onto another. They will investigate the efficiency of the permutation relative to specific computer architectures. Time will also be spent developing algorithms and implementing theoretical ideas to the computational environment, where properties overlooked in the theoretical phase become evident.